Workshop on the Limits of Syntax, Columbus, Ohio, Fall 1995

SBR-9507805 CULICOVER ABSTRACT Over the past thirty-five years, generative grammarians have made a great deal of progress in understanding human language by characterizing a very wide range of linguistic phenomena in syntactic terms. This inquiry has focused on developing theories that illuminate speaker competence and it has led to many interesting and successful predictions about cross-linguistic similarities and differences. However, as this reqearch has grown to incorporate a greater variety of within-language and cross-linguistic data, it has become increasingly clear that certain phenomena that have been given widely accepted syntactic explanations (for instance, constraints on question formation or the distribution of pronouns) quite possibly cannot be analyzed in exclusively syntactic terms without an undesirable impact on the explanatory value of the syntactic theories themselves. Consequently, it is essential to explore seriously the question of how the greater incorporation of nonsyntactic explanations into linguistic research could deepen our understanding of problematic linguistic phenomena and, at the same time, strengthen syntactic theory. We will hold a workshop as a forum for such an exploration, with the following overarching goals: identifying clear and convincing arguments that some or all aspects of a given linguistic phenomenon must or cannot be analyzed syntactically; identifying and evaluating specific proposals for nonsyntactic analyses of natural language phenomena; exploring the implications of candidate nonsyntactic analyses for syntactic theory; and exploring whether and how nonsyntactic analyses of linguistic phenomena can be expressed in a "parameterizable" theory that can cover typologically diverse languages. Among the topics to be explored in the workshop will be: constraints on extraction, bound variable anaphora, and th e "triggering" of movement. These examples all share the potential of being illuminated by a theory or theories of the informational import of sentences -particularly their presuppositional properties and informational articulation.